XIV International Congress on Mathematical Physics; July 28 - August 2, 2003; Lisbon, Portugal; Travel Funds

PI: Bruno L. Nachtergaele, University of California, Davis
DMS-0306887

Abstract:

The project will provide support for travel by US-based scientists to the XIV International Congress on Mathematical Physics (ICMP) to be held at the University of Lisbon, Portugal, July 28 - August 2, 2003. The ICMP conference is organized every three years and covers all areas of Mathematical Physics. In this area, it is the single most important event of its kind. The outstanding list of plenary speakers and the subjects of the topical sessions represent all traditional as well as some novel areas of mathematical physics.

The grant will allow approximately twenty researchers from the US to
attend the conference. In addition, partial support is provided for six
invited lecturers to the Young Researchers Symposium, which is being
organized in conjunction with the Congress.

A panel of eight experts from various areas of mathematical physics will review applications for support from the grant. Preference will be given to young researchers (postdocs and advanced graduate students).